ORIGIN AND EARLY EVOLUTION OF WHALES IN EOCENE TETHYS (PAKISTAN)

Abstract

Paleontological and molecular evidence indicates that early whales are most closely related to
artiodactyl land mammals, probably early anthracothere artiodactyls that were close to the ancestry of
living hippos. Two stages of Eocene archaeocete evolution are now well known morphologically: (1) an
early protocetid stage represented by 47 million-year-old early middle Eocene Rodhocetus; and (2) a
generalized basilosaurid stage represented by 37 million-year-old middle-to-late Eocene Dorudon.
Field work carried out through 2004 in collaboration with the Geological Survey of Pakistan
demonstrates that it is possible to collect well-preserved and virtually-complete skeletons of archaeocete
whales from upper Ypresian through Priabonian strata deposited in eastern Tethys and now exposed
spectacularly in the Sulaiman Range of central Pakistan. New field and laboratory research proposed
here includes three successive annual field expeditions to Pakistan, with two objectives:
1. Recovery and study of articulated skeletons of primitive archaeocetes from 48-50 million-yearold
strata of the marginal-marine low-sea-stand Baska Formation of central Pakistan. The
hypothesis to be tested is that whales of Pakicetus-grade were terrestrial. Whether the hypothesis
is corroborated or not, good skeletal remains from this interval will greatly enhance our
understanding of the cetacean transition from land to sea.
2. Recovery and study of articulated skeletons of protocetid-to-basilosaurid archaeocetes from 38-
45 million-year-old strata of the shallow marine upper Domanda, Pir Koh, and lower Drazinda
formations of central Pakistan. The hypothesis to be tested is that advanced protocetids like
Georgiacetus were fully aquatic and lacked connection of the pelvic girdle to the vertebral
column, precluding support of their weight on land. Whether the hypothesis is corroborated or
not, good skeletal remains from this interval will greatly enhance our understanding of the
transition from foot-powered swimming like that of primitive protocetids to tail-power swimming
like that of basilosaurids and modern whales.
Field methods to be employed are standard GPS/GIS-enhanced methods, preparation and replication of
fossils will take place in a state-of-the-art preparation facility at the University of Michigan, and analysis
will involve extensive quantitative description and functional interpretation in comparison with living
and extinct semiaquatic mammals.
The intellectual merit of this research is recovery of tangible evidence of new morphologically
and temporally intermediate stages of early whale evolution that enable assessment of many aspects of
adaptation to life in water. Such new evidence is essential for advancing knowledge of early whale
evolution and for enhancing our understanding of macroevolution across adaptive zones (in this case in
the transition from land to sea).
Broader impacts of this project include enhancement of infrastructure for research and education
through discovery of new skeletons representing stages of whale evolution that are presently poorly
known. The project will provide international research experience for American and foreign nationals.
The greatest impact may be enhanced public understanding of evolution through better geological and
paleontological evidence for one of the principal evolutionary transitions of wide interest. Whale
skeletons collected by previous expeditions are now exhibited in museums, illustrated in textbooks, and
discussed in classrooms all over the world.